Qualitative Motion Synthesis And Simulation Using Kinematic Building Blocks - A Computational Approach

While sophisticated computational tools for dynamic analysis of mechanisms exist, hardly any computational tools exist for generalized synthesis. In order to develop a computational model for mechanism synthesis, a formal foundation of the art of mechanisms design should be laid by rationalizing the process of mechanical synthesis. This research will develop a matrix methodology as the basis for a computable approach to design synthesis. The research should potentially enhance the fundamental understanding and computational synthesis of complex mechanical motions as combinations of simple building blocks.